Conference: NSF Spectrum Week 2024

This award supports organization and hosting of National Science Foundation (NSF) Spectrum Week 2024, a conference held in Arlington, Virginia on May 13-17, 2024. As in 2023, this week brings together three major programs funded through the NSF Spectrum Innovation Initiative program (SWIFT, NRDZ, and SpectrumX) to hold meetings and social events in a collaborative environment. New elements for 2024 include: co-location and coordination with IEEE DySPAN 2024 to foster publication and dissemination of peer-reviewed research results; the National Spectrum Managers Association (NSMA) industry trade group Annual Conference; and a Federal government outreach workshop for public engagement on the National Spectrum Research and Development plan.

The week of events is unique in the way it convenes a large cross-section of the spectrum research community as well as stakeholders in industry and government, and in so doing, integrate students into the forward-thinking conversations, networking, and career development opportunities.